The Design of Reputation Systems

Reputation systems provide information about the past behavior of individuals or institutions. This information can help decision-makers choose partners for transactions. In addition, concern for one's reputation and its future consequences can constrain behavior. While word of mouth always disseminates reputations informally, computer networks can now vastly accelerate and add structure to the process, gathering information about past behavior swiftly and systematically, and distributing it to a broad audience. The proposed research seeks to: characterize the alternative designs for reputation systems; use game theory to understand alternative models of reputation systems; and examine empirically the performance of systems at work. The research should improve the design of reputation systems for computer-assisted marketplaces, thereby helping buyers and sellers find their most appropriate partners and reducing the risks inherent in interactions with strangers.